Travel Grant: PostDoctoral Research Fellowship

This award is for travel under NSF Program Announcement NSF 04-566. It is intended to facilitate visits by prospective postdoctoral scholars to one or two organizations to meet prospective mentors and colleagues, to present seminars, to discuss mutual research and/or education interests, to evaluate facilities and professional development opportunities, and to initiate collaborative relationships. The applicant's area of research is in the phase change from water to ice at the base of of the antarctic ice sheet, and how such a phase change modulates the erosion of bedrock material, and the inclusion of sediment into the basal ice, and this award will provide funds for a visit to the University of California, Berkeley.